Extracting Critical Decisions for Robust and Adaptable Production Control

The PIs propose to develop a robust production planning and control scheme that is adaptable to shop floor uncertainty. The project will be a Private Sector Initiative with joint funding by the Bethlehem Steel Corporation. The problem the PIs hope to solve is the achievement of a production process which can achieve global managerial objectives while allowing for input from the shop floor as changes and local constraints emerge. The PIs' approach is to extract critical decisions from the production planning process and to solve them. Decisions left unresolved are made on the shop floor, thus allowing for adaptation to changing shop conditions. The PIs will further develop the theoretical and computational issues and will extend the approach to address the specific situation at Bethlehem Steel.